CAREER: Terahertz Femtophotography: Capturing Ultrafast Phenomena Invisible to Light

Ultrafast phenomena, such as light propagation and phase transitions, occur on femtosecond-to-nanosecond timescales and contain critical information about fundamental mechanisms in physics, chemistry, and biology. Directly visualizing these transient events can reveal how electronic and magnetic structures evolve, uncovering the hidden laws of nature that govern such dynamics. However, many crucial ultrafast phenomena remain inaccessible because they occur only once, require extremely high spatiotemporal resolution to capture, and often take place within materials that are opaque to optical light. This project addresses these challenges by exploiting the unique penetration capability of terahertz (THz) radiation and establishing computational THz imaging through the integration of optics and computation. This approach enables the first realization of THz femtophotography: an ultracompact, single-shot ultrafast THz imaging system capable of capturing ultrafast phenomena in optically opaque scenarios with extremely high spatiotemporal resolution. This system fills a critical gap in current scientific capabilities by providing a powerful new tool for studying ultrafast processes inaccessible to optical methods. Beyond scientific discovery, the outcomes of this project can accelerate the widespread adoption of THz imaging across applications such as nondestructive testing, advanced manufacturing, security screening, and biomedical imaging. The project will also cultivate a sustainable workforce pipeline through THz-featured curriculum development, undergraduate and graduate research experiences, statewide student recruitment programs, and public outreach activities designed to make THz science visible, relevant, and inspiring to students and the broader public across Arkansas and beyond, within an integrated research and education framework.

The project establishes computational THz imaging through the co-design of optical hardware and computational algorithms to overcome longstanding limitations in THz imaging and deliver unprecedented system performance in speed, resolution, compactness, and functionality. The envisioned THz femtophotography system is inherently hybrid, consisting of a hardware-encoder and a software-decoder. Key intellectual contributions that underpin this system include: (i) integrating the theory of compressive sensing into ultrafast THz imaging to reconstruct more than one hundred frames of the ultrafast event from a single measurement at frame rates exceeding trillions of frames per second; (ii) implementing the hardware-encoder based on multilayer metalenses to enable aberration-corrected image formation and encoding while substantially reducing system size; (iii) incorporating imaging physics with machine learning in the software-decoder to achieve super-resolution reconstruction of ultrafast frames; and (iv) realizing both the far-field and near-field configurations for investigating ultrafast dynamics on macroscopic and microscopic scales, respectively. The potential applications of THz femtophotography will be extensively explored and killer applications in advanced materials, laser-matter interactions, and plasma systems will be identified. This project initiates a paradigm shift toward next-generation intelligent THz systems that combine physical optics, inverse design, computational imaging, and machine learning to reveal ultrafast phenomena hidden from optical light, thus significantly advancing the ability to observe, understand, and ultimately manipulate fundamental processes in natural sciences.